Symbolic Methods for Large-Scale Circuits

This research project is concerned with the development of symbolic methods to be used in the simulation of large-scale nonlinear circuits. Over the past two decades, although symbolic network analysis has been addressed, its use has been limited because the analysis has been applied to linear, small-size networks. To utilize the advantages of symbolic analysis in the environment of large-scale circuit simulation, some radically new approaches must be taken. The goal of this research project is to investigate such new approaches that are useful for the simulation of large-scale circuits. With the new approach taken in this effort and using the known decomposition methods for large-scale circuits, symbolic techniques can be applied to large-scale circuits to enhance computational efficiency.